Conference on Specific Language Impairment and Williams' Syndrome: Albuquerque, New Mexico, July 7-13, 1995

9411172 This grant will support a working conference entitled "Specific Language Impairment and Williams' Syndrome: A Double Dissociation of Language and Cognition?", that will bring together linguists, neurolinguists, and clinicians for an intensive week-long working session. The conference is to be held in conjunction with the Linguistic Institute of the Linguistic Society of America, which will be held at the University of New Mexico, Albuquerque, during July 1995. The Working Conference on "Specific Language Impairment and Williams' Syndrome: A Double Dissociation of Language and Cognition?", will focus on the theoretical implications and clinical realities of two sharply contrasting developmental disorders, Williams' Syndrome and Specific Language Impairment. It is designed to present current results on these disorders to a much wider audience of linguists, and to bring those linguists into contact with the first-hand knowledge of clinical researchers.